U.S.-France Cooperative Research: X-Ray and NMR Studies of Fullerites and Derivatives

This three-year award supports cooperative research involving Paul A. Heiney, of the University of Pennsylvania and Roger Moret and Patrick Bernier of the University of Paris (South), Orsay. They will determine the long and short-range structural ordering in fullerites and their alkali metal intercalation compounds. Intramolecular bonding and molecular orientational order will be probed by x-ray diffraction techniques. These studies will be complemented by NMR (nuclear magnetic resonance) experiments to determine the short-range interatomic, intermolecular and atomic molecular interactions in doped phases. Fullerites are a new class of materials with superconducting capabilities. The principal objective of this study is to identify the origin of their metallic and superconducting behavior and to determine their properties. A mixture of X-ray diffraction and NMR techniques will provide complementary information and data. Dr. Heiney brings to this collaboration experience in fullerite synthesis. This is complemented by French expertise for combining high pressure and low temperature x-ray diffraction, which will be crucial for determining the structure of fullerites. The project will also benefit from access to the synchrotron radiation facility at Orsay.